Computability and Mathematical Definability

DMS-9988644
ABSTRACT

Slaman proposes to study computability and mathematical definability.
Slaman's long term goal is to provide a complete understanding of the
degree theoretic structures associated with relative definability,
such as the global structures of the Turing degrees (D) and the
enumeration degrees, as well as the local ones, such as the Turing
degrees of the recursively enumerable sets (R), the degrees below 0',
and the degrees represented within an arbitrary Scott set. Fixing D
as a paradigm example, Slaman proposes to investigate the scope of
first order definability within D, the automorphism group of D, and
the similarities and dissimilarities between D and proper subideals.

Slaman proposes to study computability and mathematical definability.
With quantitative mathematical analysis of these phenomena, one can
answer questions of the form ``Is there an algorithm to solve all
problems of a this type?'', ``Is there a simple example with specific
properties'', or ``Is there a concrete classification of all
structures with these properties?''. One can even address questions
of the sort ``Are these techniques adequate to resolve this
question?''. One must develop a theory of algorithms to show that
there is no algorithm of a certain type. Similarly, one must develop
a theory of definability to show that there is no simple example or
concrete classification. In this proposal, Slaman focuses on the
Turing degrees: where one set A is above another B if and only if
there is an algorithm to compute B when given information about A.
The Turing degrees are an abstract representation of the structure of
relative computability. Slaman proposes to study this structure, and
to pay close attention to the extent that the degrees of the definable
sets play a special role within it.